Solid Electrolyte Aided Study of Catalytic and Electrocatalytic Oxidations

Solid electrolyte potentiometry (SEP) is an in situ electrochemical technique used to monitor the thermodynamic activity of oxygen adsorbed on catalytic surfaces. To this end the catalytic reaction is studied in an oxygen concentration solid electrolyte cell. One electrode of the cell is exposed to the ambient air (reference) and the other serves as the catalyst under study. SEP is used in conjunction with kinetic measurements in order to study the catalytic oxidation of hydrogen over palladium and silver catalysts. By operating the solid-electrolyte cell in the fuel-cell mode and at temperatures above 700oC useful oxidation products can be obtained with simultaneous generation of electrical energy. The cogeneration of electricity and hydrogen cyanide by oxidizing methane-ammonia mixtures in a stabilized zirconia cell with platinum-rhodium alloy electrodes will be examined. In a similar manner the product selectivity and power output characteristics of a solid-state fuel cell in which methane will be converted to oxidative dimerization products (ethane and ethylene) is studied.